Dynamics of Three-dimensional Nonlinear Internal Waves Over Topography

0072145
Akylas

A common mechanism by which internal gravity waves are generated in
nature is flow over topography. The goal of the proposed work is to
improve our theoretical understanding of this generation mechanism with
particular emphasis on three-dimensional nonlinear disturbances. To this
end, an asymptotic theory will be developed to describe the generation of
finite-amplitude disturbances by nearly uniformly stratified flow over
three-dimensional topography that is more elongated in the spanwise than
in the streamwise direction. The proposed theory makes it possible to
explore certain features of fully nonlinear waves --- for instance, how
wave breaking is influenced by three-dimensional effects --- that, although
of primary geophysical interest, so far have defied theoretical treatment.
Moreover, the mathematical approach taken here is distinct from prior
studies and promises to advance our understanding of nonlinear internal
wave propagation from a mathematical standpoint as well.

Internal gravity waves are common features in oceans, lakes and in the
atmosphere. They owe their existence to the density stratification present
in these natural fluid bodies due to variations in temperature and changes
in the salinity (in the case of oceans) and pressure (in the case of the
atmosphere). Geophysical internal waves are known to possess enormous
scales, on the order of kilometers to hundreds of kilometers, so it is not
surprising that they are important factors in determining local weather
patterns and climate dynamics. The proposed work will provide a
mathematical description of the generation of internal waves by flow over
topography, modeling the action of wind over mountain ranges in the
atmosphere or the flow of currents over a sill in the ocean bottom.
Emphasis is placed on particular flow conditions under which internal-
wave generation is most violent and is expected to play an important part
in geophysical applications (e.g., the development of thunderstorms).